BRIGE: Computational Identification of Gene Regulatory Networks in Microalgae

PI: Hu, Haiyan
Proposal Number: 1125676

The research and education goals of the project are to: (1) propose a computational framework to systematically study gene regulation in microalgae towards in-silico modeling and bioengineering applications; (2) educate college students and general public about microalgae gene regulation; and (3) expose women and girls to interdisciplinary science and engineering through mentoring and outreach.
Research Activities: The research objective is to create novel computational approach to perform genome-wide identification of DNA regulatory elements and their patterns in microalgal model organism C. reinhardtii. The planned activities include: (1) genome-wide identification of DNA regulatory regions in C. reinhardtii by creating new strategy to measure sequence conservation; (2) identification of candidates for DNA regulatory elements via novel machine learning algorithms; and (3) identification of interacting DNA regulatory elements in C. reinhardtii through frequent pattern mining and statistical modeling. The longer-term goal of this project is to develop statistical and computational algorithms to model gene regulatory network of microalgae, and to integrate gene regulation information into in-silico modeling of microalgae for microalgae engineering.
Education Activities: The educational objectives are to introduce students at multiple levels to the exciting area of bioinformatics; disseminate the knowledge obtained from the proposed study and develop outreach activities to attract more girls and women into science and to broaden participation of underrepresented groups. The planned activities include: graduate/undergraduate mentoring, curriculum development, and outreaching/mentoring women and girls by collaborating with the UCF office of Undergraduate Research and National Girls Collaborative Project. The education activities will be tightly integrated with the research activities. A combination of metrics will be employed to evaluate the education activities.
Intellectual Merit: Understanding how genes are transcriptionally regulated in microalgae is an important problem in both biology and microalgae engineering. The proposed work aims to advance our understanding of gene regulation in microalgae by computationally identifying DNA regulatory elements at the genome-scale in microalgae model organism C. reinhardtii. There is as yet no broadly applicable method and no systematic study to comprehensively identify DNA regulatory elements and characterize gene regulatory mechanisms in C. reinhardtii. By creating novel computational algorithms such as alignment-free methods to identify regulatory regions in the entire C. reinhardtii genome and enumerative Gibbs sampling approach to de novo identify DNA regulatory elements, the proposed work will be able to systematically discover DNA regulatory signals in C. reinhardtii, and will lay the ground for genomescale gene regulatory network construction in C. reinhardtii and other microalgal organisms in the near future. The gene regulatory information gained from the proposed research has the promise to facilitate integrative in-silico modeling of microalgae and microalgae bioengineering in the subsequent research. The prior work on data integration and knowledge discovery from large scale biological data, machine learning and data mining techniques, and software development put the applicant in a unique position to perform the proposed research.
Broader Impacts: The proposed research will have great impact on education at multiple levels. The research will be incorporated into the graduate and undergraduate education by graduate/undergraduate mentoring and curriculum development. The knowledge resulted from the proposed research will be disseminated to the research community and the public to enhance scientific understanding through a website. In addition, mentoring and outreach for women and girls will create a positive cycle in attracting more women into interdisciplinary science.